An Integrated Design, Fabrication, and RF Testing Laboratory

This project exposes undergraduate students to a laboratory environment where the design, fabrication, and testing of circuits and systems for RF and microwave applications are linked together. Students using the laboratory incorporate laboratory experiences into their design process, they gain a realistic view of the value and limitations of analytic models and the methods used to develop the models, they become familiar with industry practices and standards, and they experience the limitations of instruments and measurement techniques. This award is being matched by an equal sum from the grantee.